Rhode Island Statewide Systemic Initiative for Science and Mathematics

Rhode Island proposes to create systemic change by establishing a support system consisting of leadership teams in the department of education, a cadre of ten science and mathematics specialists located a five sites in the state, and building level teams in every school. Ancillary goals include building a capacity to initiate and sustain change at the state, district, school, and classroom levels; increasing the interest of women and minorities in science and mathematics; and enlisting the involvement of the community in the schools through the establishment of a partnership involving business, industry, parents, and the schools. Cost sharing: 24%